Conference on Numerical Analysis and Domain Decomposition at the Courant Institute of Mathematical Sciences; New York, NY; January 23-24, l998

A conference on Numerical Analysis and Domain Decomposition will be held on January 23-24, 1998, at the Courant Institute of Mathematical Sciences. This conference will focus on current advances in numerical analysis and scientific computing with particular emphasis on domain decomposition, and important applications of these techniques to areas such as computational solid mechanics and fluid dynamics. The conference promises to bring together a very strong international field of senior scientists with a large number of promising young investigators from the U.S. The conference provides a great opportunity to promote areas of critical interest, primarily scientific computing, scalable parallel algorithm development (including domain decomposition) and fundamental research in numerical analysis. The continued national investment currently being made in high performance computer hardware requires a similar investment in and dissemination of the underlying mathematical tools required to utilize this equipment. Consequently, the conference will yield strong practical benefits as wells as theoretical ones.